SGER: A New Approach to Understanding Food Webs of the Forest-floor Arthropod Community

Understanding the functioning of terrestrial food webs requires quantitative knowledge of the diversity of prey consumed by spiders, because spiders are major predators in these systems. This project will develop a biochemical technique to analyze rapidly and accurately the diets of wandering spiders. Once the technique is perfected, its feasibility as a tool in field research will be tested by analyzing the feeding relationships in a population of a model generalist predator, the wolf spider Schizocosa oreata. This research uses polyacrylamide-gel electrophoresis (PAGE) to detect prey proteins in the guts of spiders. %%% Prudent management & conservation of natural communities depends on fundamental understanding of how food webs function. Forest - floor communities are particularly important because they often control rate - limiting processes for forest productivity & growth. The results of this project will allow quantitative analysis of predatory dynamic's in forest floor communities.